Systematic Construction of Single Determinants Representing Sparse Resultants

ABSTRACT
0203315
Ronald Goldman
William Marsh Rice U

Resultants have many applications in Computational Science and Engineering. They are a powerful tool for determining whether or not a system of polynomial equations have a common root for solving for the common roots when they exist. Resultants are currently employed to compute intersections of rational curves and surfaces, to solve inverse kinematics problems, and to analyze dynamic systems. Robotics, Computer vision, Comptuer Graphics, Solid Modeling, and Computer Aided Geometric Design all utilize resultants.